An Undergraduate Research Experience in Microelectronics andPhotonics

At this REU Site electrical engineering seniors will gain research experience by participating in projects in microelectronics and photonics. Specifically, they will work on continuing and new projects in a) advanced silicon processing for devices and integrated circuits, b) high-power and high-frequency bipolar transistors and other microwave devices, c) III-V compound quantum nanostructures, d) non-crystalline silicon structures for energy conversion, e) basic semiconductor material studies and f) ASIC design for high-frequency circuits and systems. They will work on these projects full time during the summer and part time during the academic year. Cooperation with Lincoln University, North Carolina A & T, and the State University of New York- New Palz, and institutions with a significant minority enrollment is planned. A microelectronics fabrication course each summer with teaching responsibilities shared by all four participating faculty is offered. Students will be able to transfer the course credits to their home institutions. A number of these research-trained and motivated students will continue into graduate studies and elsewhere; consequently, graduate students interested in microelectronics and photonics from the program participants will be actively recruited.